Dissertation Research: Form and Function of the Strepsirhine

ABSTRACT P.I. Marian Dagosto SBR- 9320237 Similarities in the post-cranial skeletons of early fossil primates and extant prosimians have led earlier researchers to conclude that the earliest primates moved about in similar ways to current prosimians. However, very few features of the skeleton have been reliably correlated with specific positional behaviors in living forms, so that the inferred behaviors of extinct early primates remain unclear, making it difficult to interpret evolutionary change in primate postcranial morphology from a functional perspective. More than any other element of the skeleton, the hand and wrist do reflect clear adapations to different locomotor patterns. Precise biomechanical models incorporating specific variation in wrist morphology can be formulated to reconstruct positional/locomotor behaviors in fossil primates and to document their phylogenetic patterns of change. This dissertation research, using video, dissection of cadaver specimens, and measurement of primate wrists in skeletal collections, will reveal historical transitions in primate wrist morphology and positional behavior. *** P\anthro\jfried\9320237.abs - & ( + - ! ! ! ! D - - ( Times New Roman Symbol & Arial " h Pc ePc e = Jonathan Friedlaender Jonathan Friedlaender